Theories and Methods for Diagnoses of Moist Frontal Circulations

While many of the factors that govern general weather patterns are fairly well understood, the physical phenomena that control localized severe events, such as extremely heavy snowfalls or flash floods, are still somewhat of a mystery. These mesoscale phenomena, as they are called by meteorologist, currently are the subject of intense investigations within the meteorological community. The Principal Investigator will undertake a theoretical and numerical modeling investigation of two mesoscale phenomena (frontogenetical forcing and moist symmetric stability). These features may be responsible in some cases for the formation of intense rain/snow bands that often form in the vicinity of meteorological fronts. Results of this study should lead to better fundamental understanding of the physics of banded precipitation structures and eventually to improved short range precipitation predictions.//